S-STEM: Fostering Convergent Leaders in Human-Centered Intelligent Robotics, Smart Infrastructure, and Advanced Manufacturing

This project will contribute to the national need for well-educated scientists, mathematicians, engineers, and technicians by supporting the retention and graduation of high-achieving, low-income students with demonstrated financial need at Worcester Polytechnic Institute. A total of 70 scholars pursuing bachelor’s and master's degrees in Robotics Engineering, Civil Engineering, Mechanical Engineering, and Interactive Media and Game Development will receive scholarships up to $15,000 (for undergraduate students) and $20,000 (for graduate students) for up to six years. Scholars will receive mentoring and opportunities to work in teams that emulate work environments. Additional activities for scholars include internship opportunities in technology companies.

The overall goal of this Track 2 project is to increase STEM degree completion of academically talented, low-income undergraduates with demonstrated financial need. There is a significant national need to grow the STEM workforce and nurture key talent that will ensure economic competitiveness and provide domestic leadership across critical sectors. This project directly speaks to this need by supporting STEM student success, which will strengthen the workforce in Human-Centered Robotics, Smart Infrastructure, and Advanced Manufacturing. The project will be assessed by an experienced evaluator that will assess the effectiveness of mentoring and team experiences, and the data generated will contribute to the knowledge base regarding effective strategies to support talented, low-income students in STEM. This project is funded by NSF’s Scholarships in Science, Technology, Engineering, and Mathematics program, which seeks to increase the number of academically talented, low-income students with demonstrated financial need who earn degrees in STEM fields. It also aims to improve the education of future STEM workers, and to generate knowledge about academic success, retention, transfer, graduation, and academic/career pathways of low-income students.